Large Genome Sequence Searching Schemes

A pilot project to look for coding sequences through a concatenated and divided version of GenBank data will be developed to ascertain the degree to which raw sequence data can be used to identify and predict gene products. GenBank entries will be divided into a reference and a test set A variety of search algorithms will be applied. This activity will also serve to test the validity of limited datasets and unique views of major databases and their role in advancing biological knowledge.